Acquisition of a CCD Detector and CO2 Laser Heating System for High-Pressure/High Temperature Raman Spectroscopic Studies

9406250 McMillan This award provides partial (69%) funding to acquire a light detection system and a laser heater for the Raman spectroscopy system in the Department of chemistry and Biochemistry at the Arizona State University. The institution is committed to providing the remaining funds needed to purchase the equipment. The Raman spectroscopy system at Arizona State is used in research primarily to characterize chemical bonding and thermodynamic properties such as heat capacities and entropies in minerals, liquids and glass materials held at high-temperature and high-pressure. ***